The Antarctic Ice Edge Bloom: Its Importance to Intermediate Trophic Levels

The Antarctic ice edge as a frontal system has different implications for different trophic levels. During summer, primary producers and microheterotrophs flourish in the meltwater lens that is created in the euphotic zone at the retreating ice edge. In contrast, for longer-lived consumer species with generation times of a year or more, any enhanced standing stocks at the ice edge must be the result of immigration to the ice edge or production in place. This research will test the hypothesis that the summer ice edge bloom acts as a biological magnet to concentrate metazoan consumers and as a southward moving generator facilitating growth and reproduction in zooplankton species. Research conducted in the Scotia-Weddell Sea region during the austral summer will focus on the distribution, abundance, and biological activity of zooplankton and micronekton in the upper 1000m of the water column in the open water, marginal ice zone, and pack ice regions of the study area. The physical environment will be described; the extent and activity of the ice edge phytoplankton bloom will be mapped using in vivo fluourescence and estimates of primary production will be made. Zooplankton/micronekton community structure will be characterized using data from an optical plankton sampler, as well as nets and trawls. Biological activity of zooplankton will be evaluated through studies of metabolic rate, grazing rate, egg production rate, diet, and metabolic enzyme activity. The resultant data will describe zooplankton/micronekton community structure, major trophic relationships, grazing impact, and patterns of energy utilization for species living in the study area, showing clearly the impact of the ice edge bloom on the intermediate trophic levels.